An RUI Proposal to Investigate the Neutron Drip Line Using the Modular Neutron Array

Central Michigan University is a charter member of a collaboration of 10
institutions that worked together to construct a million dollar, high
efficiency neutron detector for use at the National Superconducting
Cyclotron Laboratory. The Modular Neutron Array (MoNA) is a critical
instrument in the study of nuclei far from stability. One of the unique
aspects of the collaboration is that many of the members of the
collaboration are from primarily undergraduate institutions and the
involvement of undergraduate students is fundamental goal of the project.
In the MoNA collaboration undergraduate students from Central Michigan
University have play integral roles in the construction and operation of
MoNA; they have built detector bars, wired electronics, written code, sat
shifts, and done both on- and off-line data analysis.

The MoNA collaboration has been remarkably successful at involving
undergraduate students in front-line research. This proposal will permit
the PI and his undergraduates from Central Michigan University to continue
to participate in the experimental program. In addition, the proposal
presents a model for not only sustaining the momentum of an active
collaboration based on students and faculty from undergraduate
departments, but also moves the collaboration to more actively involve
undergraduates in all the experimental runs and in data analysis. If these
measures are successful, they will provide a prototype for involving
undergraduates in cutting-edge experimental physics at user facilities.